Environmental Connections: Science, Technology, Society, and Education

Interdisciplinary (99) Revision, implementation, and research of three environmentally-focused, pedagogically innovative undergraduate courses are being undertaken by a team of faculty from departments in the sciences, engineering, and education. These courses - one in biology, one in engineering, and one in geography - are part of a new Minor in Science and Mathematics Education and central to CalTeach, a University of California-wide initiative to recruit and better prepare STEM undergraduates for careers as secondary science and mathematics teachers. The transformed courses highlight four core themes: sustainability and the environment; connections across science, technology, society, and education; evidence-based argumentation in science; and innovative pedagogical strategies effective in K-12 schooling. The courses' collective purpose is to shape the scientific ideas and pedagogical practices of prospective science teachers - to help create a cadre of undergraduate science students who bring both holistic and critical thinking to their teacher education programs.